Organization of the Topical Meeting on Photonic Switching, Incline Village, Nevada, March 18-20, 1987

The Topical Meeting on Photonic Switching is organized under joint sponsorship by the Optical Society of America and the Lasers and Electro-Optics Society of IEEE. It is scheduled to be held March 18-20, 1987, at Incline Village, Nevada. The meeting will solicit invited and contributed original papers on the subjects of devices and architectures suitable for switching, multiplexing, or routing optical signals. The purpose of the meeting is to foster interactions between two groups exploring possible applications of photonic switching technology: those working on optical switching devices, and on future switching systems and networks. Serving as meeting cochairs are Dr. P.W. Smith, Bell Communications Research, and Dr. T.K. Gustafson, NSF; program cochairs are Dr. J.E. Midwinter, University College London, and Dr. S.D. Personick, Bell Communications Research. The organizers of the meeting are acknowledged leaders in the field, and the topic area is central to long term research directions within the QEWB program.